Ultracold Collisions to Probe Fundamental Physics

The present proposal covers three interconnected topics: ultracold atom-atom collisions,
ultracold atom-ion scattering, and modeling of ultracold samples doped with charged particles.
The scattering properties of chromium, including dipole-dipole interactions in the presence of
a magnetic field, will be computed using a within a multichannel treatment. Understanding
these scattering properties of complex atoms becomes more important as such species are
cooled to ultracold temperatures. The effect of Feshbach resonances on ultracold
mixtures, such as Li-H will also be investigated. Second, the impact of including hyperfine
interactions in studies of ultracold atom-ion scattering, will be examined. Finally, the behavior
of ultracold samples of trapped gases doped with charged particles, will be studied.